Mathematical Sciences: Diophantine Approximation and Arithmetic of Polynomials

This grant supports the research of Professor Wolfgang Schmidt to work on diophantine problems. He will work on polynomial-exponential equations, linear recurrences, and the number of integer solutions of Siegel's theorem on curves. He also wishes to work on extending Vojta's refinement of the subspace theorem to a wider framework. This is research in the field of number theory. Number theory starts with the whole numbers and questions such as the divisibility of one whole number by another. It is among the oldest fields of mathematics and it was originally pursued for purely aesthetic reasons. However, within the last half century, it has become an essential tool in developing new algorithms for computer science and new error correcting codes for electronics.